A Thermal Analysis Testing System for Undergraduate Materials Engineering

This project is used in several undergraduate laboratory courses in metallurgy/materials engineering in experiments providing meaningful data generation, acquisition and analysis of the thermal properties of polymers, ceramics and metals. The experiments that the system exposes the students to the thermodynamic properties of materials in relation to their structure and properties.